Geometric constructions over finite fields, elementary equivalence of finitely generated fields, and rational points on varieties

DMS-0301280
Bjorn M. Poonen

The investigator proposes:
1) to use sieve methods to prove the existence of various geometric
objects and maps over finite fields. For many problems, the standard
dimension-based arguments work only over infinite fields; the idea is
to replace them by numerical counting.
2) to continue the study initiated by F. Pop on the question of
whether elementarily equivalent finitely generated fields are
necessarily isomorphic.
3) to write a graduate text highlighting the application of schemes to
the study of varieties over nonalgebraically closed fields.

Originally, algebraic geometry was concerned with the real number
solutions to systems of polynomial equations, but the 20th century
made it clear that it was fruitful to generalize by considering fields
(i.e., number systems) other than the real numbers. For example,
finite fields have proved invaluable in the theory of error-correcting
codes and cryptography. Unfortunately, many geometric constructions
are known to work only over infinite fields. The investigator's first
project is to use combinatorial techniques to adapt these
constructions to the finite field case. The investigator's second
project concerns the relationships between geometry over different
fields; potentially it could allow results over one field to be
transferred to another field. Finally, the investigator proposes to
write a graduate text that will make newly developed techniques in
this area accessible to students.